Eddies in the Beaufort Gyre

ABSTRACT

OPP-9815303
PLUEDDEMANN, ALBERT
WOODS HOLE OCEANOGRAPHIC INSTITUTION

The investigators will analyze current velocity data from buoys that have drifted in the Arctic ice pack in the Beaufort Sea since 1993. The current velocity data provide an observational basis to study annual circulation features in the Arctic Ocean that cannot be observed by any other means. The data will be used to examine eddies in the upper water column for evidence of transport of water and nutrients off the shelf to the basin. Particular interest will be paid to the eddies as the buoy drifts over the continental shelf into the deep basin. The shelf break has been shown to be a particularly important area for transport of carbon from the productive shelf area to the basin where it is lost to the shelf ecosystem. The results of this project will provide input for planning a large Phase 2 field program of the Shelf Basin Interactions project in 2002 in the same geographic area.